Tectonic Processes, Architecture and Iostopic Systematics of Deep Crustal Levels: Investigation of the Nagssugtoqidian Orogen of West Greenland

; R o o t E n t r y F I| C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l I| I| 4 @ ) ! " # $ % & ' ( * + , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C D E F G H I J F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; e = e j j j j j j j Q 1 3 T 5 Q j Q j j j j ~ j j j j > 9526684 Connelly Deep crustal features associated with continent-continent collisions are difficult to study in most phanerozoic orogens because the exposure levels are seldom deep enough. The Nagssugtoqidian Orogen of west Greenland has attracted much attention as one of the worlds most completely exposed foreland-to-foreland transects of a deep precambrian Orogen. However, recent work has failed to confirm the presence of major displacement, crustal-scale shear zones and thrusts anywhere in the orogen that should mark a continent-continent suture. This project, in conjunction with the Danish Lithosphere Centre, will attempt to date, characterize and interpret metamorphism of this belt, previously thought to be a type example of a deep suture, and develop a tectonic model for its formation. Results should determine if the deformation was due to an intracontinential or an intercontinental tectonic setting. ; Oh +' 0 $ H l D h S u m m a r y I n f o r m a t i o n ( R:\WWUSER\TEMPLATE\NORMAL.DOT 9526684 Felicia Smith Felicia Smith @ @ @ @ F # Microsoft Word 6.0 1 ; ; K @ Normal a " A@ " Default Paragraph Font > Felicia Smith-\\CLM12\EARTESHR\1995SEPT\ABSTRACT\CONNEL.TXT @HP LaserJet IIID LPT3: hppcl5a HP LaserJet IIID 8D R HP LaserJet IIID 8D R 1 Times New Roman Symbol & Arial " h $ 5 9526684 Felicia Smith Felicia Smith ; ;